RUI: Minimization of Electrically Active Defects and Radiation Hard Silicon Dioxide

A new approach to radiation hardening of thermally grown Si02 is proposed which will change the way we think about the oxidation of silicon, and could lead to a radiation hardening process, which simultaneously produces minimum densities of electrically active defects, based on fundamental understanding rather than empirical recipes. This new approach is based on the premise that the oxidation kinetics of silicon, and the electrically active defect densities that determine radiation sensitivity and device performance are determined by the intrinsic strain resulting from the volume expansion that occurs when silicon oxidizes. The basic idea is to control the electrically active defect densities by changing the intrinsic strain by processing. Changes in intrinsic strain are related to processing by viscous flow of the oxide relieving strain. To quantitatively evaluate the relation between intrinsic strain and processing, intrinsic strain will be varied by preparing samples in a matrix of oxidation conditions (temperature, oxygen pressure, thickness, time, partial pressure of water vapor). To determine the effect of each of these conditions, only one will be varied while all the others are kept fixed in each set of the matrix, and electrically active defect densities measured as functions of changes in intrinsic strain on the same samples in each set. It is expected that an optimum set can be found in which the electrically active defect densities are minimized. Samples prepared by the optimum set then will be tested for radiation hardness.